REU: Research Experience for Undergraduates - SITE FY92

This project will bring twelve undergraduate students to work at the Cornell Theory Center for a ten week period in the summer of 1992. Recruiting will be national in scope, and there will be special efforts to bring in women, minorities, and students from institutions without rich computing resources. Participants will work under the joint guidance of a faculty member from Cornell University, and a member of the scientific and technical staff of the Theory Center. Problems in the area of computational science research will be investigated.